Conference Proposal: Talbot Workshops 2005 - 2007: Geometric Langlands

Abstract

Award: DMS-0512714
Principal Investigator: Haynes R. Miller, Michael J. Hopkins

The Talbot program is a series of yearly workshop retreats
bringing together graduate students, recent PhDs, and faculty
mentors for an intense exploration of a topic of active
mathematical research. The Talbot 2004 workshop was devoted to
the Stolz-Teichner model of elliptic cohomology and was mentored
by Stephan Stolz. The Talbot 2005 workshop will focus on the
geometric Langlands program and be mentored by David Ben-Zvi. The
geometric Langlands program is one of the most fertile areas of
mathematics, integrating representation theory, topology, and
algebraic geometry. The original conjectures of Langlands tie
infinite-dimensional representation theory to the structure of
Galois groups, with profound applications to number theory. From
the geometric perspective deriving from the renowned theorem of
Borel-Weil-Bott, one would like to classify such representations
by equivariant sheaves on a parametrizing space. Drinfeld and
Laumon, among others, adapted Langlands' original ideas for
function fields to formulate a far reaching geometric
generalization, now called the geometric Langlands program. Work
in this area over the past twenty years has changed the face of
modern representation theory. Recent advances, such as new
geometric generalizations of the classical Satake isomorphism,
make this an ideal time to gather young mathematicians to study
these results, the techniques used to derive them, and newly
exposed avenues for future research.

The Talbot workshops seek to introduce aspiring mathematicians to
active areas of mathematical research, foster community and
collaboration across subdisciplinary and institutional lines, and
form pedagogical and research ties between established
mathematicians and young researchers. The topic for Talbot 2004
concerns a central problem in mathematics deeply related to
neighboring areas of science. For instance, the crystallographic
study of proteins, quantum states of particles, and the structure
of integer solutions to polynomial equations are all central to
chemistry, physics, and cryptography/number theory; their deeper
study requires probing the algebraic structures that govern
aspects of their nature. Representation theory is precisely the
field of mathematics devoted to this study. Further, the
geometric Langlands program offers a unifying vision for the
specific algebraic structures suited to each of these areas,
which are called reflection groups, Lie groups, and Galois
groups. This Talbot workshop will bring together graduate
students with different specialties and from many universities to
spend a week focused on this important subject. The participants
and their mentor, David Ben-Zvi, will share a residence as well
as lectures, discussions, and meals. This informal atmosphere,
mixing fellowship and intellectual interest, will promote a
concentrated study of the material and lay the foundation for
future collaboration and research.